SGER: Quest Atlantis Project

This project will take advantage of advanced technologies and
strategies proven successful in online role-playing games to create
exciting opportunities for children in an after school context. There are
almost no examples of learning environments that build on lessons and
strategies from the commercial success of 3D online, role-playing games,
environments that are populated by tens of thousands of users each day.
Leveraging 3-D technologies and principles so successful for the gaming
community to develop educationally meaningful environments is a topic of
which we, as an educational community, know very little and which has much
potential to engage typically underrepresented groups in SMT learning.
This work is exploratory and has exciting potential both in terms of its
direct service to the disadvantaged children at the local Boys and Girls
Clubs and in terms of the broader implications of the research to inform
the education community.

Our 18 month relationship with the Boys and Girls Clubs is currently
strong and recently Compaq and Microsoft donated $100,000 in equipment,
software, and service to both local Boys and Girls Clubs to create
Technology Centers. The Quest Atlantis program is viewed as an exciting
opportunity to integrate the computers in Club programming, and staff, and
space will be committed to the project. Continuing this relationship and
leveraging this still-new technology and the current interest in
innovating with this equipment and software creates a timely opportunity.